Four Pivotal Problems in Classical Algebraic Geometry

9900025

This project is concerned with a number of fairly specific questions in algebraic geometry that are pivotal to the development of certain ideas in the subject. These are: the possibility of parametrizing the zeroes of a cubic polynomial in five variables; the families of curves contained in the zero locus of a cubic polynomial in four variables; the density of the locus where the value of a sextic polynomial in three variables is a square; and the existence of families of rational curves on quintic threefolds in the zero locus of a quintic polynomial in four variables.

Algebraic geometry is the study of the geometry of the sets of solutions to polynomial equations. By analyzing the algebra of polynomials, we come to understand the geometry of their solution sets; and from a knowledge of these sets we arrive ultimately at a deeper and more effective understanding of algebra.